Computer-Aided Engineering (CAE) for the Microelectronic Encapsulation Process

Today, everything from computers, consumer electronics, to military equipment is driven by micro-chips, the first link in the chain of technology for the microelectronic industry. In order to extend the flexibility and capacity of device and system design, microelectronic packaging is becoming as important as silicon fabrication. Among existing encapsulation methods, plastic packaging, which accounts for eighty percent of the market share, will continue to play a major role in the growth of the microelectronic industry. The performance reliability of plastic packaging, greatly depends on the performance of the encapsulants and manufacturing methods. Traditionally, design and manufacturing for microelectronic encapsulation with plastic packaging are conducted in an ad hoc manner based on experience and intuition, which is costly and time consuming. The study is aimed at establishing the scientific basis and attaining an engineering solution for characterizing the process. It will employ experimental, analytical and computational efforts to develop an efficient, reliable analysis tool. The results of the research will improve understanding of the process and facilitate simultaneous engineering by means of computer simulation.